Groups in Geometry and Topology

Abstract

Award: DMS-0905802
Principal Investigator: Michael Kapovich

This proposal is a continuation of Kapovich's research of
previous years in the areas of geometry, topology and geometric
group theory. Most subjects of the planned research revolve
around geometry of group actions on various spaces and geometric
structures on manifolds, as well as geometry of buildings. The
research planned by Kapovich covers geometry of buildings with
applications to representation theory, in particular, Kapovich
intends to continue his study of the geometry of the moduli
spaces of polygonal linkages in symmetric spaces and buildings in
relation to the algebraic groups. Other topics of research
include discrete groups in algebraic groups (in particular, the
coherence problem for arithmetic lattices), real-projective and
complex-projective structures.

Groups appear naturally as symmetries of mathematical and
physical objects, like wall-patterns, minerals, snowflakes and,
ultimately, the entire universe. This project studies relation
between algebraic properties of groups and geometry of spaces for
which groups appear as symmetries. This two-way relation is
beneficial for both group theory (which is a part of algebra) and
geometry. An example of such relation is provided by the theory
of "buildings." Comparing various ways to navigate in buildings
can be mathematically described in terms of certain inequalities.
Such inequalities in turn provide answers to various questions
about symmetry groups of buildings.